Integration of FT-NMR Spectroscopy into an Undergraduate Curriculum

A 200 MHz Gemini Fourier Transform Nuclear Magnetic Resonance Spectrometer is being integrated into the undergraduate chemistry curriculum for chemical analysis. Chemistry laboratory instruction is being improved in six regularly offered courses, one interim course, and the undergraduate research program of the department. Students are being introduced to the FT-NMR in the sophomore organic chemistry course and receive hands-on experience with this state-of-the-art, computer-controlled laboratory instrument as juniors and seniors. The high-field NMR technique produces simplified proton NMR spectra allowing for a more thorough interpretation of spectra by the students and thereby enhancing their ability to use NMR in the identification of compounds they have prepared. They are also becoming familiar with Carbon-13 NMR as an important tool for structural elucidation of substances. Computer control of the instrument is allowing for collection, manipulation, and rapid analysis of data including two- dimensional NMR. The grantee is matching the award from non-Federal sources.